ITR/IIS: Querying Heterogeneous and Uncertain Information

There are many different sources from which relevant information can be
obtained for an intelligence task at hand, such as an analysis of operations
planning by Al Qaeda. The accuracy of this information is frequently
imperfect.

Information obtained from each source is frequently also different in
structure and scope. XML has emerged today as the standard for information exchange. Its
flexibility permits the representation of information from heterogeneous
sources in a single unified framework.

The goal of this project is to manage uncertain (probabilistic) data,
represented in XML. While there have been previous efforts to develop
probabilistic relational systems, the need for representing and querying
uncertain information is much greater for loosely structured data not
readily amenable to a relational representation.

XML data poses several modeling challenges that are the focus of this
project: due to the data having (an inclusion hierarchy) structure,
probabilities cannot be assigned independently; due to XML elements occurring
at multiple granularities, probabilities may be assigned at multiple levels;
due to the possibility of missing and repeated sub-elements, one may not be
able to obtain complete distributions.